Science and Mathematics are Right Together (SMART)

*** 9553538 Morrell Atlanta Metropolitan College will initiate a 5-week,summer commuter, Young Scholars project in chemistry and mathematics for 36 rising students entering grades 7 and 8. The goal of Project SMART is to spark the sense of wonder, intrigue, and challenge concerning mathematics and the sciences in students who have been identified as having potential in these areas. This goal will be accompllished through classroom lectures and discussion, laboratory and field experiences stemming from an investigation into the chemistry of the environment and an investigation into the mathematics arising from these experiences. Students will also investigate the concepts involved in mathematical modeling. ***